The Geometry of Moduli Spaces of Sheaves

The PI plans to explore the geometry of parameter spaces of sheaves on
algebraic curves and surfaces. She wants to calculate some of the
intersection theory, in particular Verlinde numbers, on Gieseker moduli
spaces of semistable sheaves on a smooth surface. These
intersection-theoretic calculations will help the PI probe whether the
level-rank duality which is a feature of moduli spaces of bundles on a
curve, can be associated with moduli spaces of sheaves on a surface as
well. The author also wishes to explore some of the representation theory
of classical and affine Lie algebras on the cohomology of Grothendieck
quot schemes on curves, as well as on the cohomology of Gieseker moduli
spaces of sheaves on a surface, which would result in a better
understanding of the geometric structure of these moduli spaces.

The study of vector bundles in algebraic geometry parallels that of gauge
field theories in physics. The most familiar example of a gauge field is
the electromagnetic field. Higher-rank vector bundles correspond to
nonabelian gauge fields, which appear in high-energy physics, and
mathematically are organized as the entries of a matrix. Studying the
geometry and intersection theory on the moduli space of bundles, which is
the goal of this project, leads in particular to understanding the
structure of various integrals on the space of all possible gauge fields.
These integrals are mathematical expressions for scattering amplitudes of
various physical processes in high-energy physics.